Earth Sciences Postdoctoral Research Fellowship Award

The Fellow will study cycling of high-field-strength elements in the mantle by inductively coupled plasma-mass spectrometry. An important component to the theory of plate tectonics is the cycling of material from the mantle to the crust at ocean ridges, and back into the mantle at subduction zones. High-field strength elements (HFSE) will be used to study basalts erupted at volcanic arcs, where they tend to be low in HFSE, and basalts erupted on oceanic islands that tend to be enriched in HFSE. This study should evaluate the hypothesis that major basaltic volcanism on Earth is part of a cycle, formed at ocean ridges, subducted at ocean trenches, undergoes reactions that lead to arc volcanism, and eventually resurfaces as plumes feeding ocean islands. The Fellow will spend her fellowship tenure at Cornell University.